Augsburg Weather Lab

This Department of Physics is purchasing equipment for weather monitoring and forecasting to support a course in Introductory Meteorology which is taken by non-science majors to meet graduation requirements. The lab includes a computerized local weather station and satellite receiving system to take advantage of low cost, real-time data sources. Additionally, a meteorological workstation has dial-up access to a meteorological database to demonstrate the extensive data and analysis available. Students and instructors use the lab's sources to create daily weather briefings for class. Live local weather conditions and satellite imagery are displayed in the Physics Department hall display case to create interest in weather and science for the general student population. Topics of atmospheric stability, surface weather map analysis, upper air analysis, frontal analysis, atmospheric motion, instrumentation, and radiative energy exchange are taught in the lab, enhancing the student's understanding of the physical processes that influence daily weather.